Research Initiation: The Structure of NP-Complete Problems

NP-complete problems are among the most interesting and important optimization problems known. This class includes literally hundreds of natural problems from graph theory, routing, scheduling, compiler optimization and logic. These problems are especially intriguing because, although no efficient algorithm is known in the worst case, many of them can be solved quickly in practice. Traditionally, the work on NP-completeness has focused on the complexity and structure of their yes/no questions. Recently, new insights have come from looking at a deeper level of structure. This investigation continues work on NP-complete problems, focusing on the structure of their feasible solutions. Understanding this rich level of structure will provide a theoretical framework for coping with these problems in practice. This theory will then lead to faster algorithms for solving these problems and a better explanation of their inherent difficulty. This research also has applications for finding approximation algorithms for NP-complete problems and, in particular, explaining why some problems can be approximated well and others cannot.